Early Alert Young Scholars University of Wisconsin, Milwaukee

The University of Wisconsin-Milwaukee will initiate a 6-week commuter Young Scholars project for 20 students in grades 8-9 in mathematics and physics. Young Scholars will be recruited from the Milwaukee area to participate in a program designed to enhance their interest and skills in mathematics and physics. All participants will be members of ethnic minority groups underrepresented in science careers. Each program unit will integrate physics concepts with mathematical skills. Students will prepare presentations to share with their classmates during the academic year. Follow-up will include six Saturday sessions, with science teachers invited, to cover more topics and prepare more presentations.